NSF East Asia Summer Institutes for US Graduate Students

OISE-0406836
Uriz

This award will support a U.S. graduate student to conduct research in East Asia. The primary goals of the East Asia Summer Institute program are to expose students to East Asia science and engineering in the context of a research laboratory, and to initiate personal relationships that will foster research collaborations with foreign counterparts in the future. This project will provide the student with first hand research experience, an introduction to science and science policy infrastructure, and orientation to culture and language in East Asia.